Earthquake Resistant Construction Technique for New and Existing Buildings

This is a Phase II SBIR project to develop a new type of isolation technique for reduction of structural response during earthquake excitations. The new isolation system is known as the Friction Pendulum System (FPS) which uses steel connections to achieve a pendulum motion of the support structure in small amplitudes. This concept represents a simple yet highly effective way for seismic isolation. Engineering and design considerations as identified in the Phase I research which was satisfactorily conducted, will be investigated. Laboratory tests of prototype FPS isolators and building models will be carried out. The effects of the unique and advantageous features of the FPS on building seismic response will be evaluated. The applicability of the FPS to different types of new and existing buildings will be studied. The successful completion of this project will demonstrate that the FPS can substantially improve the earthquake resistance of new and existing buildings, without an increase in costs. Because of the inherent simplicity and versatility of the FPS concept, this new isolation system could become a major tool for the seismic resistant design of constructed facilities.